ITR/AP: The Analytic Web

ABSTRACT
0205575
U of Mass, Amherst
Leon J. Osterweil

The internet has changed forever the way science is done. Collaborations such as NSF-sponsored
Globus, and GriPhyN are beginning to employ internet access to facilitate data sharing and
expedite collaboration among worldwide communities of geographically distributed researchers.
This creates opportunities to do better science through the use of shared data and expertise, but it
also creates risks arising from uncertainty about how internet-accessed data sets were produced
and how they can be used. If scientists cannot determine how particular results were obtained,
those results may be subsequently combined in ways that will lead to incorrect or misleading
conclusions, possibly with devastating effects.
Our project will develop, demonstrate, and evaluate technologies to facilitate the building of
community consensus by supporting definition, validation, repeatability, and adaptability of
scientific processes that integrate and combine web-based data sets and tools. Although there will
always be debate about the most appropriate models, methodologies and conclusions used in
scientific inquiry, our work should help scientists focus on areas of disagreement and resolve these
disagreements more quickly, perhaps through further experimentation and inquiry. Thus, our work
will also help policy makers in areas where scientific results are critical ingredients, such as
economic policy, environmental management, and social initiatives..